600 MHz NMR Spectrometer and Cryoprobe

This award provides partial support for the acquisition of 600 MHz NMR spectrometer with a cryoprobe accessory. The instrument will be used by six faculty research groups at the University of Washington, all of whom study aspects of biomolecular structure, function, and design. The instrument will be fully equipped to perform multidimensional heteronuclear NMR on biomolecules, including those that are perdeuterated. In addition to the four-channel spectrometer, three-axis gradient unit, a cryoprobe accessory will be acquired. A cryoprobe accessory will significantly enhance the impact of the spectrometer in two ways: (1) it will allow for faster data collection, and hence more data collection in a given time frame, for samples that can be produced at reasonable concentrations (above approx. 0.5 mM), and (2) it will allow data to be collected on more dilute samples that are currently not amenable to study with our existing equipment. The higher sensitivity is especially relevant to a number of ongoing projects that involve designed proteins and large multi-protein complexes, both of which have limited solubility issues.